Contract for Technical Services to Research, Write and Prepare the Historical Monograph

A historical monograph in the intellectual and technical history on NSF-support of engineering circa 1952 to 1989.